REU Site: Research Experiences for Undergraduates in Microengineered Materials

9732405 Datye The University of New Mexico will continue a Research Experience for Undergraduates (REU) site in its Center for Microengineered Materials. Undergraduate students will be recruited from colleges and universities that offer degrees in chemistry, chemical engineering, materials science and ceramics. Students will participate in interdisciplinary research projects on advanced materials, including sol-gel synthesis, thin films, microfabrication of electronic materials, catalysts and adsorbents, and vapor phase synthesis. In addition, REU participants will give presentations on their work and will visit the national labs and nearby industries that are partners with the Center. %%% The interdisciplinary nature of the research projects and close liaison with industry and national laboratory associates will provide a valuable experience to the undergraduate students participating in the program. ***